Accelerated Testing for Concrete Reinforcing Bar Corrosion Protection Systems

The goal of the current study is to develope a detailed correlation between accelerated laboratory test and field performance for a broad range of corrosion protection systems. The study, carried out in partnership wiith the Kansas Department of Transportation and the manufactures of corrosion protection systems, takes advantage of ongoing state and university surveys in northeast Kansas evaluating the performance of bridge decks. The study includes the evaluation and modification of laboratory test procedures to establish those that provide the best match with the corrosion behavior of reinforced concrete bridge decks subjected to normal and accelerated exposure. The corrosion evaluation techniques address the protection provided by epoxy-coated bars, correction inhibiting admixtures, corrosion-resistant steel, the effects of different deicers, and modifications in concrete mix proportions. The field test platforms are subjected to corrosion environments matching those of the bridge and to aggressive corrosion environments matching those obtained in the labortory. Direct correlation of corrosion performance will allow more effective and rational evaluation techniques to be instituted. The final result will be more efficient selection procedures, more rapid movement of corrosion technology into practice, the extension of structure service life, and the overall reduction in the repair and rehabilitation cost associated with chloride induced corrosion in reinforced concrete structures.